CAREER: Deterministic Shared Memory Multiprocessing: Vision, Architecture, and Impact on Programmability

Software innovation typically relies on performance improvements of
the underlying hardware. However, technology limitations hinder
further significant progress in single-thread performance. Therefore,
the software industry has the immense problem of rethinking its
software development process and techniques to adopt multicore
systems. Popularizing parallel programming is a Grand Research
Challenge for the systems community [CRA]. Being able to leverage the
full potential of multicores would put us back into exponential growth
of usable performance as well as lead to significant power savings.

One of the main reasons why parallel programming is hard is that
parallel code in current multicore systems can execute
nondeterministically. Each time a multicore executes a parallel
application, it can produce a different output even if supplied with
the same input. This frustrates debugging efforts and limits the
ability to properly test parallel code, becoming a major obstacle to
widespread adoption of parallel programming.

This project poses broad intellectual questions with far-reaching
implications in modern computer systems: Can nondeterminism be removed
from shared-memory multiprocessor systems without degrading
performance? What are the trade-offs in designing deterministic
multiprocessor systems? What are the implications and uses of
deterministic behavior in programmability? The PI plans to answer these
questions by devising efficient, general purpose, fully deterministic
shared memory multiprocessor systems and demonstrating that they can
enable significant changes in how parallel programs are written,
tested and deployed. An integral part of the concurrency challenge is
education, so this project also aims to develop a graduate and
undergraduate curriculum that will teach students about concurrency
principles and practical parallel programming.